Gordon Conference on Polymer Colloids, Tilton High School, Tilton, NH, June 27 - July 2, 1999

9904379
Storm

This award provides partial support to the Gordon Research Conference on Colloids. This is a highly multidisciplinary field, for which the Conference will be exploring a broad, cross-cutting frontier. The Conference is structured so that a very large number of foreign experts will be among the invited speakers. The funds are to be used to make possible participation of students and post-docs to this international conference.